Connection to the NSFNET

Whittier College is establishing a connection to NSFNET via a 56,000 bits per second line through the CERFNET mid-level network. The connection enables the school's faculty and students to communicate and collaborate with the national scientific and educational community, and to access network resources. Areas of science and education to be addressed by Whittier over the Internet include geology, image processing, physics, mathematics, political science, economics and history. The library also will benefit from the connection. This award funds part of the costs for two years.***//